Acquisition of DE-Time-of-Flight and ESI-Orthogonal Time-of-Flight Mass Spectrometers for Characterization of Oligonucleotides, Glyproteins, and Phosphopeptides

9977623

Abstract

This project involves the acquisition and use of two mass spectrometers for biological research. These systems will be placed in the Mass Spectrometry Core Facility in the Beckman Research Institutes at the City of Hope Cancer Center. This equipment will support the research activities of twelve on site users as well as the forty-eight grant supported users from outside the City of Hope. Research that will benefit from these instruments includes oligonucleotide sequencing and complex protein analysis; subpicomole protein sequencing; analysis of antibody conjugates; better identification of components in complex mixtures; identification of peptide cleavage products from crude mixtures derived from cleavage of internal peptide bonds; identification of the products of oxidative damage to nucleic acids. Confirmation of sequences and modified bases by mass spectrometry will be used for quality control of synthetic DNA and RNA from the synthesis facility. The instrument will provide substantive support for the entire molecular biology effort at the City of Hope.